Universe in the Park: An Outreach Program in the State of Wisconsin

This award will fund "Universe in the Park", an outreach program that is held throughout the State park system in Wisconsin. Each Universe in the Park workshop starts with a presentation on a current astronomical topic or a recent discovery by an undergraduate (or graduate) student form the University of Wisconsin. The students then lead an observing session for the public using large-aperture, but portable, telescopes.

In addition to the broad impact on the public participants, the students learn how to prepare and make presentations to lay audiences, hone their knowledge of the sky, and keep current on recent astronomical events. This award will fund approximately 60 Universe in the Park sessions and will reach an audience of several thousand. The web page for the program is: http://www.astro.wisc.edu/uitp/